Research Initiation: Parallel and Sequential Computational Geometry

This research is focused on the development of new efficient parallel and sequential algorithms for computational geometry problems. Problems arising from applications of computational geometry to robotics, computer vision, computer graphics, and geometric modeling will be investigated. Efficient parallel algorithms for constructing 3-dimensional convex hulls will be sought. An investigation of parallel autonomous robot motion planning in the presence of obstacles will be initiated. Efficient parallel hidden surface elimination algorithms will be developed. Algorithms will be developed for the automation of the determination of the global shape of a simple geometric object.